Cooperative Institute for Dynamic Earth Research: Fluid and Magma Transport at Plate Boundaries

Advances in disciplinary tools and major infrastructure efforts have fueled impressive progress in our ability to understand the dynamics of plate boundaries and the associated hazards to life and infrastructure. New data sets and new methodologies offer valuable insights, yet many aspects of plate boundary evolution are still poorly understood. Part of the impediment to progress is due to the disciplinary nature of research. A more integrated approach that leverages the knowledge and latest achievements in each of the relevant disciplines is needed to generate new ideas and to identify new observations that distinguish between competing hypotheses. This award supports a summer program for the Cooperative Institute for Dynamic Earth Research (CIDER) on the GeoPRISMS-driven theme of fluid and magma transport. CIDER seeks to lower barriers to integrated research by promoting cross-disciplinary education of researchers at all career levels. The team also intend to develop a workforce that can more effectively engage in interdisciplinary research with the goal of enabling more rapid progress on an important and unsolved research problem.

The proposed four-week summer program brings together a cohort of senior graduate students and postdocs from institutions across the country to tackle the fundamental questions about the evolution of plate boundaries. This topic is central to the basic paradigm of plate tectonics and understanding the role of fluids and magma has been a long-standing challenge. Senior participants from various US institutions, and representing a range of disciplines, serve as instructors and mentors for group research projects. The first two weeks of the program are devoted to lectures and tutorials, covering the basic tools and approaches of the various disciplines. The second two weeks are used to develop research projects in groups with a good mix of disciplinary expertise. The outcome will be a better understanding of plate boundaries, including key questions about the cycling of water and carbon through the Earth system, which regulates the long-term stability of climate.